Mathematical Sciences: Geometric Evolution Equations

9401106 Ye The scope of the research centers around the study of classes of geometric evolution equations. The equations in question characterize flow systems relating to Ricci curvature, Yang-Mills gradient and harmonic maps as some of the types. It is also intended to outline constructions of Einstein metrics on manifolds in certain cases. The research may have potential applications to gauge theory and general relativity theory in mathematical physics. ***